CAREER: A Distributed Tensor Runtime for Fast, Flexible, and Scalable Machine Learning

Modern artificial intelligence systems rely on extremely large models that must run across many specialized computer chips working together. As these models grow, it becomes harder to coordinate how computations should be split and how data moves across machines, leading to inefficiencies and limited flexibility. This project develops a new software system that helps these machines work together more efficiently and more flexibly. The system is designed to adapt to changing conditions, such as varying workloads or hardware failures, while still maintaining high performance. By making it easier to run complex artificial intelligence applications, this work aims to support the next generation of intelligent technologies in a reliable and efficient way.

This project advances the design of distributed machine learning systems through two tightly integrated research thrusts. The first thrust develops a general purpose execution engine for accelerators that unifies core system functions such as task scheduling, communication optimization, and memory management. The second thrust builds on top of this system and designs a flexible programming model that enables users to express a wide range of parallel execution strategies, integrating both static and dynamic approaches. The system incorporates techniques such as just-in-time compilation and profile-guided optimization to balance efficiency and adaptability. Together, these components enable a single runtime to support diverse workloads while maintaining high performance across large-scale computing environments.

The broader impacts of this project include advancing the accessibility and usability of large-scale artificial intelligence systems for both research and industry. The resulting software will be released as open source, with accompanying educational materials and tutorials to support adoption by a wide community. This will lower barriers for scaling current model architectures and developing the next generation of novel architectures. The project also contributes to education and workforce development by integrating research artifacts into courses along with hands-on learning and research opportunities for students. In addition, outreach activities will engage younger learners through interactive demonstrations to expand participation in artificial intelligence and computer systems.